QuBIC: NSF Information Technology Research/QuBIC Principal Investigators' MeetingPrinciple Investigators Conference

EIA-0205098
Sohn, Lydia L
Princeton University

QuBIC: : NSF Information Technology Research/QuBIC Principal Investigators' MeetingPrinciple Investigators Conference

This workshop is designed to foster communication between the grantees of the QuBIC program, the ITR Revolutionary Computer program, and the DARPA Bio-Comp program in the areas of DNA and biomolecular computing. This workshop will be the primary forum for the exchange of research ideas, and interaction between EIA and its grantees.